CAREER: Expanding Latinxs' Opportunities to Develop Complex Thinking in Secondary Science Classrooms through a Research-Practice Partnership

This is a Faculty Early Career Development Program (CAREER) proposal responsive to Program Solicitation NSF 17-537 and funded by the Discovery Research PreK-12 program, which seeks to significantly enhance the learning and teaching of science, technology, engineering, mathematics and computer science (STEM) by preK-12 students and teachers, through research and development of STEM education innovations and approaches. This project will address the need to educate teachers and students to engage in asking questions, collecting and interpreting data, making claims, and constructing explanations about real-world problems that matter to them. Science educators generally agree that science classrooms should provide opportunities for students to advance their thinking by engaging in critical conversations with each other as capable sense-makers. Despite decades of reform efforts and the use of experiential activities in science instruction, research indicates that classroom learning for students remains largely procedural, undemanding, and disconnected from the development of substantive scientific ideas. Furthermore, access to high-quality science instruction that promotes such complex thinking is scarce for students with diverse cultural and linguistic backgrounds. The project goals will be: (1) To design a year-long teacher professional development program; and (2) To study the extent to which the professional development model improves teachers' capacity to plan and implement inclusive science curricula.

This study will explore ways to enhance youths' learning experiences in secondary school classrooms (grades 6-12) by building a sustainable partnership between researchers and practitioners. The work will build on a previous similar activity with one local high school; plans are to expand the existing study to an entire school district over five years. The proposed work will be conducted in three phases. During Phase I, the study will develop a conceptual framework focused on inclusive science curricula, and implement the new teacher professional development program in 3 high schools with 15 science teachers. Phase II will expand to 6 middle schools in the school district with 24 teachers aimed at creating a continuous and sustainable research-practice partnership approach at the district. Phase III will focus on data analysis, assessment of partnership activities, dissemination, and planning a research agenda for the immediate future. The study will address three research questions: (1) Whether and to what extent does participating teachers' capacity of planning and implementing the curriculum improve over time; (2) How and why do teachers show differential progress individually and collectively?; and (3) What opportunities and constraints within schools and the school district shape teachers' development of their capacity to design and implement curricula? To address the research questions, the project will gather information about the quality of planned and implemented curriculum using both qualitative and quantitative data. Main project's outcomes will be: (1) a framework that guides teachers' engagement in planning and implementing inclusive science curricula; and (2) increased knowledge base on teacher learning. An advisory board will oversee the work in progress. An external evaluator will provide formative and summative feedback.